Doctoral Dissertation Research in Role Model and Mentor Effects of Female Faculty and Supervisors

This dissertation grant is for research to analyze the influence of women in supervisory positions on the attainment of the individuals they supervise. The first part of the study focuses on the impact of female faculty on the educational and labor market success of female students. Data from the National Longitudinal Study of the High School Class of 1973 and the High School and Beyond sophomore cohort will be utilized for the analysis. Statistical analysis of the these data will shed light on the issue of whether there is a positive role model effect of female faculty on women's education and success in the labor market. The second part of the project analyzes the effects of supervisor gender on male and female employees using the concept of compensating wage differentials. The major data source is the National Longitudinal Survey Youth Cohort. Of special interest is whether there is a mentoring effect for women having a female supervisor. This research is important because it will shed light on the importance of role models and mentors in reducing educational and labor force attainments differences between men and women.